Engineering Research Equipment Grant: Generalized Layout inMechanical Design

This research will consist of a rigorous systematic methodology for generating the initial topology or layout of structural members based on mathematical models and physical principles. The new method of homogenization provides a new and exciting approach for addressing rigorously how structural topologies may be optimized. This fundamental new capability offers a unified scheme for carrying concept evolution through detail layout design, using rigorous principles together with appropriate empirical knowledge, so that realistic, manufacturable shapes can be obtained.